A Formal Econometrics Computer Laboratory

Computing technology offers the science disciplines the opportunity to extend laboratory experiences to all areas of their curriculum. In economics, one or two courses in econometrics, set apart from the theory courses, serve this purpose. Students are presented with statistical theory and are then asked to reinforce the theory by practising statistical and computing techniques. They are so involved with connecting the statistical theory to the techniques that they seldom make the further connection to the economic theory presented in other classes. An economics computing laboratory is being set up at Macalester College to unite the practise and theory of econometrics, and serve as a model for other economic theory courses. This facility, equipped with a network of Macintosh computers, enables students to focus on the interpretation of the econometric study. Instead of concentrating on computing skills and statistical techniques, students can participate in research projects using facilities in the lab as well as through the campus network. The college will contribute an amount equal to the award.